The Rise and Fall of Evolutionary Morphology

Darwinian evolution serves as a foundation for modern biology and is certainly the crowning achievement of 19th century biological research. Despite it's present centrality, Darwinian evolution by means of natural selection was not widely accepted in the 19th century. There was, however, one major stronghold of acceptance: Germany has long been considered " Darwinism's second home." Despite this unique trait, historians of science have paid surprisingly little attention to the German biologists who supported Darwinism, viz. German university biologists. Most significantly, we lack a satisfactory account of German biologists' strikingly un-Darwinian approach to evolution, which came to be known as "evolutionary morphology." Dr. Nyhart is analyzing the fate of evolutionary morphology in Germany from just before the publication of Darwin's theory in 1859 to its eclipse around 1900. Using previously untapped archival sources, the study is tracing the relationship between the morphologists' theoretical commitments and their tenuous institutional position within the university system. By taking this approach, Dr. Nyhart hopes to explain not only the rise and decline of this particular research program, but also to illustrate the extent to which institutional and disciplinary factors play a role in the development of scientific knowledge.